Unraveling the observational mysteries of the CGM and IGM with non-equilibrium gas kinetics

We are all familiar with gas temperature: a higher temperature implies
more energetic atoms which we feel as heat. Gasses at the same
temperature have the same distribution of energies: a
Maxwell-Boltzmann distribution. If we heat some of the gas,
collisions quickly re-establish the Maxwell-Boltzmann distribution.
In addition, collisions between electrons and ions can excite
electronic states (in a neon sign, for example). The excitation rates
depend sensitively on the tails of the Maxwell-Boltzmann distribution.
Astrophysicists use these ideas to infer the temperatures, densities,
and compositions of gases in the cosmos. Observations of the
intensity and wavelengths of the emitted photons provide information
about the composition and energies of the gas. However, the gas
density in much of the Universe is extraordinarily low. It is so low
that the heating and cooling times are longer than the equilibration
time for the Maxwell-Boltzmann distribution. The discrepancy from the
thermal distribution affects radiative cooling rates and the balance
between ionization and recombination. This changes our interpretation
of observed spectra. Spectra are important diagnostic of gas
properties throughout the Universe. The results of this research will
be an improved understanding of cosmic gas for use by all astronomers.
The proposed research projects will provide training for graduate
students in high-performance computing and dynamical systems. These
skills will translate to wide variety of STEM careers. The proposed
simulations will generate a number of small-scale analyses suitable
for undergraduate projects. We will provide both term-time and summer
internships for all institutions in the 5-College Consortium. This
will help recruit and retain future STEM leaders.

These fundamental physical issues motivated a new collisional
Boltzmann equation solver based on Direct Simulation Monte Carlo
(DSMC). Development of this code motivated new algorithms for
computing the multiple ionization states found in tenuous cosmic
plasma. The new computational method reproduces the standard LTE
cooling curve. But, it also tracks the non-thermal time-dependent
evolution of gas affected by multiple heating, cooling, and dynamical
processes. This novel approach promises new insight into the exotic
states of gas in galaxies. For example, consider the circumgalactic
medium (CGM). Interpreting non-thermal ionization fractions in the
thermal limit may yield the wrong elemental abundances and
unexpectedly large volumes of thermally unstable gas. Even in the
simple case of a hydrostatic halo, this non-thermal distribution may
pass through multiple CGM gas phases. This results in an overall
non-thermal mixture of energies and ionization fractions, which
impacts our understanding of gas accretion and wind processes that
govern star formation in galaxies. The implications are even more
drastic for smaller scale structures like gas clouds embedded in a hot
halo or for shocks. Overall, these non-thermal distributions affect
absorption and emission features in the optical, UV, and x-ray. They
alter our interpretation of quasar absorption-line and x-ray spectra.
In short, the proposed work will improve our core understanding of
non-fluid gas dynamics. This may lead to ground-breaking solutions of
outstanding observational dilemmas.